Plasma Processing of Advanced Ceramic Powders

Abstract for Patrick R. Taylor / University of Idaho / CTS-9220252 The PIs propose to produce very fine carbide and boride particles by the techniques of plasma synthesis. They propose to develop a fundamental understanding of the reaction kinetics, heat and mass transfer, and nucleation and growth kinetics associated with the generation of these particles using a modified previously developed non-transferred arc plasma flow reactor. Once these fine particles are obtained, they will be characterized as to their strength, hardness, and toughness produced by the sintering and hot isostatic pressing of the particles. The PIs further propose to develop a theoretical model capable of describing the nucleation and growth phenomena in these plasma systems.